Workshop: Developments and Challenges in Mixture Models, Bump Hunting and Measurement Error Models

This award will provide funds to partially support 10 junior researchers and 5 invited speakers to participate in an international research workshop on "Developments and Challenges in bump hunting, mixtures and measurement error models" to be held in Cleveland, June 2-4, 2002. The workshop has multiple purposes. It brings together statisticians and a collection of scientists from different fields, yet all working towards similar scientific goals, to exchange new techniques and explore merging ideas. The workshop provides a unique opportunity for young statisticians to interact with leaders in these related fields. It invites experts with a national reputation from astronomy, biology and medicine, to discuss challenges to statistics, particularly in bump hunting, mixture modeling, clustering and measurement error models.